REU Site in Physical Anthropology

This award provides funds for an REU Site in Physical Anthropology hosted by the University of North Carolina at Greensboro. Undergraduate students will develop original research projects in human osteology as a vehicle for fostering their growth as researchers, scientists and leaders. Each year for three years, 10 students will participate in all phases of the analysis and documentation of over 440 human skeletons from the Late Archaic period Barrett site. The students' research projects will be aimed at (1) developing new applications of scientific visualization toward the inventory, analysis and recordation of human skeletal material, and (2) contributing to our understanding of biocultural adaptation of these Late Archaic hunters and gatherers. Activities will include work in the laboratory, two courses each semester, professional and career development, and excursions to museums and archaeological sites. This award contributes to the Foundation's continuing efforts to attract talented students into careers in science through active undergraduate research experiences.